Perceptual and Cognitive Processes in Category Learning

The research funded by this award will investigate how people learn new
categories of perceptual objects and events. Categorization is a cognitive
process of fundamental importance that all people perform countless times
every day. It allows people to read, to select foods that are safe to eat,
to use objects and tools in the environment, and to recognize friends and
kin. Unfortunately, it is also a fragile process, in the sense that a
number of normal and pathological conditions have been shown to cause
category learning deficits. These include normal aging, major depression,
Parkinson's disease, Alzheimer's disease, Huntington's disease, strokes,
and schizophrenia. Previous theories of category learning were tested
primarily on categorization data from healthy university students. To
understand category learning in these neglected populations requires an
understanding of the brain structures and pathways that mediate this
important skill. Toward this end, this research will test and extend the
first neuropsychological theory of category learning, called COVIS
(COmpetition between Verbal and Implicit Systems; Ashby, Alfonso-Reese,
Turken, & Waldron, 1998, Psychological Review, 105, 442-481), which assumes
that category learning is a competition between separate explicit and
implicit categorization systems. The explicit system is under conscious
control and engages in a systematic process of hypothesis testing or
rule-based reasoning. The implicit system, which is largely not accessible
to conscious awareness, engages in a form of procedural learning. Ashby et
al. (1998) developed a formal version of COVIS that makes precise
quantitative predictions in a wide variety of categorization tasks, and
also a neuropsychological version that describes the underlying neural
mechanisms and pathways that are assumed to mediate category learning. The
current research includes many new experiments with healthy young adults
that were motivated by the COVIS theory. Some experiments will test the
COVIS assumption that normal category learning is a competition between
functionally separate explicit and implicit systems. Many of the
experiments will isolate the explicit system and investigate its
properties, including the rules that govern how it learns, both with and
without trial-by-trial feedback about response accuracy. Finally, many
analogous experiments will attempt to achieve the same goals with the
implicit system (i.e., isolate it and investigate its properties). The
completion of these studies will not only provide a rigorous test of COVIS,
but regardless of their outcome, it will also provide valuable new insights
into the perceptual and cognitive processes and the underlying neural
mechanisms and pathways that mediate one of the most basic of all human
acts - grouping objects and events in the environment by category.